Presidential Awards For Excellence In Science, Mathematics, & Engineering Mentoring

Dr. Shabazz began his graduate teaching career at Atlanta University (now a part of Clark Atlanta University) in 1957, where he found only two students pursuing master's degrees in mathematics. During the next six years, he recruited and graduated 109 students with master's degrees in mathematics. Of this group, 30 went on to earn doctoral degrees from some of the Nation's leading universities. In 1986, Dr. Shabazz returned to join the faculty at Clark Atlanta University. Within six years, 155 undergraduate students were majoring in mathematics at Clark Atlanta University. Nineteen former students of Dr. Shabazz are currently doctoral candidates in mathematics. Dr. Shabazz recently returned to his alma mater, Lincoln University, where he continues to teach and mentor.